Urban Initiative--Self-Study Proposal for Los Angeles

9353307 Bradley Under the leadership of Rebuild Los Angeles (RLA) and the Los Angeles School District, the self study/planning process will involve data collection, program and policy review, and the development of a proposal that will identify systemic approaches to improve mathematics and science achievement for all students. Key stakeholders, forming an Advisory Committee and a Steering Committee, will assist the project director with data collection, data analysis and intervention design. Study teams will assess teacher quality, current status of reform measures and adequacy of resources. Focus groups, consisting of representatives from different socio-economic groups and ethnic backgrounds, will be involved in the planning process. ***